CISE Research Instrumentation

A CNC Coordinate Measuring Machine will be provided for researchers at the University of Utah for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area of: o Automated Generation of CNC Code form Computer Based Geometric Models and Computer Aided Process Planning and Use of Expert Systems. o Sensor-Based Mechanical Feature Recognition and Input. o Data Input for Automatic Data Fitting Research. o Remote Computer Integrated Manufacturing.